Incorporation of FTIR Throughout the Chemistry Curriculum

The goal of this project is to incorporate Fourier-transform infrared (FT-IR) spectroscopy throughout the chemistry curriculum. Existing experiments have been improved and new experiments developed to make use of the inherent advantages of FT-IR. These improved and new experiments facilitate student understanding of FT methods, symmetry and group theory, kinetics, functional groups, and rotational/vibrational spectroscopy. In addition, the hands-on experience with modern instrumental techniques, including computer library searching/identification, computerized averaging of samples, and nontraditional sample presentation, will prepare students for instrumental procedures they are likely to encounter in graduate school or industry. The new FT-IR is incorporated into the nonmajors', Organic, Physical, Advanced Inorganic, and Instrumental Methods courses. In addition, sampling accessories, including a diffuse reflectance attachment, an attenuated total reflectance cell, and a CIRCLE cell for highly absorbing solvents, can be purchased through this project and incorporated into the new experiments. The new equipment substantially increases the university's ability to teach its students modern instrumental approaches to chemical analysis. *